Power Control For Packet Radio Networks

9506505 Yates This research looks to extend the application of power control in mobile cellular communications to multihop CDMA packet radio networks. Using soft interference constraints derived from signal to interference ratio measurements, distributed power control algorithms will be studied which adapt to changes in the radio link quality, actively regulate the network topology, achieve desired end-to-end throughput objectives, and integrate power control and multihop routing. ***